Mathematical Sciences: Meeting: Logical Methods in Mathematics and Computer Science

Logical methods are playing an increasingly important role in many areas of computer science and mathematics. The applications of logical methods to problems in both areas, in particular, the ways in which logical methods can be applied to understand the theory of computation including the study of the effective or computational content of theorems in mathematics and how logical methods can be used to solve a variety of problems in computer science are the foci of this conference activity. Topics will include recursion theory, recursive and polynomial time mathematics, the general theory of computation, automata, complexity theory, and various other applications of logic within computer science including non-classical logics such as temporal and dynamic logic, concurrent programming, nonmonotonic reasoning, program verification, and hybrid control. This project will support the Meeting on Logical Methods in Mathematics and Computer Science to be held at Cornell University from June 1-3, 1992. The purpose of this conference is to bring together researchers from both mathematics and computer science to explore the many applications of logical methods to problems in both areas and to increase the interaction between mathematical logicians and computer scientists.